Oceanographic Instrumentation

0100915
Tesh
This award to Skidaway Institute of Oceangraphy provides computer hardware and peripherals required to operate the NOAA Scientific Computer System (SCS v. 3.0) on the vessel Savannah, presently under construction, which will be operated as part of the University-National Oceanographic Laboratory System (UNOLS) research fleet. This system will be used as the primary data acquisition system on the vessel, and will thus be a resource used by all scientific users of the vessel in their research during 2001 and future years.
***